CAREER: Mathematical Optimization for Inductive Machine Learning

This research explores inductive machine learning using mathematical optimization as a foundation. Optimization techniques such as linear and nonlinear programming have been shown to be effective in solving error-minimization problems inherent in inductive learning. This work builds upon such a system, MSM-T, that constructs multivariate oblique decision trees. This system is used as a platform for research into learning issues such as overtraining avoidance. In particular, new methods for feature selection, node splitting, and overflow avoidance are being incorporated into MSM-T. These techniques are intended to optimize the generalization performance of the system in high-variance learning situations such as feature noise and sparse, high-dimensional feature sets. The results of this work will be used in applications in medical diagnosis and prognosis that require efficient programs for learning from large volumes of data. In addition, research in machine learning and medical decision making will be incorporated into the computer science curriculum at Oklahoma State University, as part of the CAREER activity.